ITR: Procedures for the Rigorous Comparison of Vector and Tensor Fields

During the last decade, researchers in our Scientific Visualization Group at Stanfor University
have been developing general data analysis techniques for vector and tensor fields
based on rigorous mathematical approaches. The work has systematically explored direct
visualizations and feature extractions of both vector and tensor fields in two and three
dimensions using computers. Recently, we have been developing the next stage of our
visualization efforts: automated atad comparisons.

Traditional techniques for vector field comparison fall into three basic categories: image,
data, and feature based comparison. In most instances, comparisons are made visually,
not automatically. In addition, there are fundamental limitations with these existing comparison
techniques. Image base comparisons suffer from difficulty in representing datasets
beyond two-dimensional vector fields, data based comparisons suffer from grid alignment
problems, and feature base comparisons, while providing excellent location of specific features,
may not show all the global information in the field.

Our new approach to this problem is essentially a feature-based comparison technique,
with the important stipulation that our features attempt to represent the topological structure
of the field. This ensures that we do not overlook any important structures in the
field. Our paradigm is to analytically study vector and tensor fields to extract topologically
critical information, transfer this knowledge into effective computer programs, and then to
visualize the fields using the results of our analysis.

We have successfully implemented our ideas for two-dimensional vector fields and for
three-dimensional vector fields. We now intend to study tensor fields associated with white
matter brain functions.

Our fundamental technique for the comparison of vector and tensord ata would be
applicable to almost every field of science and engineering, ranging from the magnetic field of
the sun to airflow over a wing. In addition, time varying fields can be studied by comparing
a field at a fixed time with its state at later times. Our approach is unique in the field of
scientific visualization because it is based on rigorous mathematical analysis, and it is the
only approach available to quantitatively study NMR tensor brain data. Our methodology
in the analysis of tensor and vector datasets allows better design of air vehicles, better
understanding of electromagnetic problems, and provides substantial time savings when
dealing with large experimental datasets. Quantitative understanding of white matter brain
functions has the potential to open up a whole new area of medical research.